POWRE: Mass Spectrometry Investigations of Macromolecular Redox Systems

This POWRE award by the Chemistry Division supports the research of Dr. Tracy D. McCarley on the characterization of branched and conducting polymers by the use of mass spectrometry. The objective is to gain a better understanding of the applicability of new sample ionization methodologies in obtaining mass spectral data not available by other means. This project will establish new research approaches in the field of mass spectrometry of macromolecular systems.